NSF-CGP Fellowship: Development of Power System Intelligent Coordinated Control

9605028 Lee This award provides funds to support a long-term research visit by Dr. Kwang Y. Lee, Intelligent Distributed Controls Research Laboratory, Department of Electrical and Computer Engineering, Pennsylvania State University, for collaboration with Dr. Takashi Hiyama, Department of Electrical and Computer Engineering, Kumamoto University, Kumamoto, Japan. Their research is concerned with the development of power system intelligent coordinated control. The purpose of intelligent coordinated control is to improve power generation reliability, economy, and safety through the implementation of modern control technologies and artificial intelligence. The research will be conducted primarily in the Kumamoto Electric Power Systems Laboratory at Kumamoto University. During the visit, Dr. Lee also will be working with the Kyushu Electric Power Company in experimenting with the power system intelligent coordinated control concepts in its Power System Analysis Simulator. The U.S. and Japanese collaborators have been engaged independently in parallel research in this area and share a common interest in training students and other researchers in the required skills to develop, test, and implement advanced control techniques in actual power plants and power systems. The collaborators expect the present collaboration to allow them to expand their current research from the power plant to the power system level and integrate their various capabilities for mutual benefit. This project is supported under the Science Fellowship Program between the National Science Foundation and the Japan Foundation Center for Global Partnership. ***